A Prototype Distance Learning Computer Laboratory for Exploratory, Asynchronous Learning

9552985 Bamberger In this project, key components of a distance learning computer laboratory will be prototyped. In particular, the following systems will be developed: an interpersonal communication tool which combines elements from email, video-conferencing, listserv/listproc, usenet news, WAIS, gopher, and WWW; network based, interactive, media-rich, digital collections or curricular material; and authoring agents for the seamless integration of the interpersonal communication systems and interactive digital collections. The prototype sytems will be developed and field tested during the grant period. Deliverables will include the prototype systems, raw data for assessment of the impact of the tools on educational delivery, and a preliminary assessment study. In order to fully demonstrate the need for and benefits of distance learning computer laboratories, the prototype system will be developed in the context of a course on digital image processing. ***